Microprocessor Interfacing for Undergraduates in Mechanical Engineering

This project introduces undergraduate mechanical engineering students to microprocessor interfacing. The student's skills for designing experiments are enhanced by the ability to interface the microprocessor to basic engineering sensors and components such as strain gages, thermocouples, LVDT's and stepping motors. The laboratory equipment that supports this project consists of microprocessor trainers, analog interfaces and associated software. This laboratory familiarizes students with modern techniques of measurement. This award is being matched by an equal sum from the grantee.